Student Computer Laboratory to Implement Mathematica in the Calculus-Differential Equations Sequence

A major redevelopment project is being undertaken in the calculus-differential equations sequence which is taught each quarter to about 900 students in the sciences, engineering, and computer science. The most basic concepts of these subjects are being developed graphically, and the visual impact of the graphical development is expected to lead to a stronger qualitative intuition for the subject. Once the qualitative intuition that graphics provides is in place, the students have a framework in which to imbed a more quantitative algebraic development of the same concepts. This approach will enhance the student's ability in analyzing and then solving scientific problems. For these purposes computers and symbolic manipulations software are providing graphical capabilities. Equally important to the project is the interactive notebook feature of Mathematica which is imperative to the exploratory approach incorporated into laboratory projects. A philosophical belief of this project is that experimentation fosters intuition; and intuition builds mathematical skills and the confidence to use them.